U.S. Egypt Cooperative Research on Magnetic Properties of Layered Compounds

Technical Narrative: This project represents a collaborative research effort between the University of Arizona (Drs. R. Emrick and J. Vuillemin) and Cairo University (Dr. M. Mostafa) in Egypt. The objective of this research is to study the magnetic properties of some novel magnetic insulators; these materials not only have interesting magnetic properties, but also interesting electrical properties. In addition to practical device applications, they can be used to verify theoretical predictions for systems of lower dimensionality. The work will be conducted in the laboratory facilities at the University of Arizona and Dr. Mostafa will spend one year there. This project in materials research fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Egypt to combine complementary talents and conduct research in areas of strong mutual interest and competence.